SBIR Phase I: Nondestructive Strength and Rehabilitation Assessment Wood-Based Structures

There are many wood structures in existence throughout the country and an important consideration in determining the remaining life of the structure is the determination of the in-situ strength of the wood material. This project will develop procedures for the nondestructive evaluation of the strength of the wood in place. The data will enable engineers to evaluate the rehabilitation potential of the existing wood structure. The results of the investigation will provide the basis for the development of nondestructive testing devices for use in assessing the in-situ strength of the wood structures.